BIOCOMPLEXITY: Integrating Genomic and Ecological Analysis of Symbiotic Bacteria that Mediate Insect Herbivory

Moran
9981432

Many plant-feeding insects are dependent on bacterial symbionts to
supplement their nutrition: without symbionts, these insects cannot grow or
reproduce. In some cases, transmission of symbionts occurs only from mother
to progeny; these bacteria possess specialized genetic traits that allow
them to better nourish their hosts. Other symbionts infect hosts through
other routes and appear less specialized. Approaches from modern genomics
will be used to explore how gene content and gene expression of long-term
symbionts affect host nutrition and growth under different environments,
such as host plants differing in nutritional quality. In addition, the
effects of facultative symbionts on insect growth and survival, currently
unknown, will be explored. Experiments will test whether these more mobile
symbionts are vectored by parasites of the insect hosts or confer
resistance to these parasites.

Although bacterial symbionts are central in insect-plant interactions,
including those affecting agricultural crops and forests, their biology is
little known. The proposed work would exploit recent developments in
molecular biology to reveal the full range of symbiont effects on the
biology of plant-feeding insects. Results have the potential of exposing
novel, specific methods for insect control that might be less costly or
hazardous than commonly used chemical control measures. This project, which is being supported by the Directorates for Biological Sciences and and by the Division of Chemistry and the MPS Office of Multidisciplinary Activities, will impact several scientific fields, and the findings may provide basic information useful for both environmental and biotechnological applications.